NSF Travel Grant Support for IEEE ICCCN 2012 Conference

The 21st IEEE International Conference on Computer Communications and Networks (ICCCN 2012) is to be held in Munich, Germany during July 30 to August 2, 2012 (http://icccn.org/icccn12/). This award provides partial assistance to approximately 10 United States-based graduate students to attend this important conference.